Institute for Mathematics and Its Applications

9701653 Friedman This award provides support for the research and programmatic activities of the Institute for Mathematics and Its Applications (IMA) at the University of Minnesota. The IMA is a unique institute addressing a national need. The programs of the IMA are designed to foster linkages among the mathematical sciences, other sciences, and industrial research by identifying problems and stimulating research in various interface areas of mathematical sciences and to encourage the participation of mathematical scientists in areas of application by providing an atmosphere conducive to multidisciplinary research. Yearly IMA programs are carefully chosen to provide a meeting ground for mathematical scientists with engineers and scientists from academia, industry, and government laboratories. The interaction of senior and mid- level scholars and postdoctoral fellows is designed to provide an environment where new ideas can be developed and explored. The IMA places a high priority on the training of postdoctoral researchers, including both individuals associated with the annual program and those participating in the industrial postdoctoral program. The IMA also supports summer research and training programs for graduate students, as well as an ongoing seminar on industrial problems. Efforts are made to schedule programs of timely research interest and where opportunities exist for cross-disciplinary and programmatic collaboration and scientific exchange. In addition to National Science Foundation support, the IMA is supported by 29 Participating Universities and 12 Participating Corporations.